Biochemical Engineering XI: Molecular Diversity in Discovery and Bioprocessing Conference to be held July 25-30, 1999 in Park City, Utah

This proposal seeks support for the above meeting sponsored by the Engineering Foundation. The chairpersons are Prof. George Georgiou of the University of Texas and Dr. Steven Lee of Merck. This conference series has been instrumental in addressing key bioengineering issues involving research and education. Biochemical Engineering X, held May 18-23, 1997 in Kananaskis, Canada, was attended by 176 attendees from 18 countries, with 60% from industry and the rest primarily from academia. It is one of the premier meetings for the bioengineering research community. The theme of the 1999 conference is "Molecular Diversity in Discovery and Bioprocessing". Among the key sessions are:
Discovery and Production of Bioactive Small Molecules
Discovery and Design of Macromolecules
Exploiting Microbial Diversity
Bioinformatics for Molecular Diversity
Production of Complex Biologicals
New Analytical Tools for Molecular Discovery and Bioprocessing
High Throughput Bioprocessing.

The conference will provide an excellent opportunity for U.S. researchers to network with foreign scientists in the field, many of whom come from countries with extensive bioengineering technology, e.g., Japan.